Technician Support: Radiogenic and Noble Gas Isotope Geochemistry Laboratories, California Institute of Technology

9633381 Saleeby This grant provides $149,829 as partial support of three years of a technician's salary. The technician will be responsible for oversight, operation and maintenance of the Caltech radiogenic and noble gas mass spectrometery laboratories. This is a Phase I technician support proposal under the EAR/IF technician support sub-program. Technical support at these laboratories will allow continued and productive research by this strong and well supported group including studies utilizing helium thermochronology as applied to tectonic investigations of the Peninsular Ranges and the Sierra Nevadas, Ar/Ar geochronologic studies of deformational events near the Gulf of California, and Sm/Nd isotope systematics applied to dating of garnet bearing metamorphic rocks from the western margin of the Cordillera. ***